DEAF STEM: Deaf Educational Access For Science, Technology, Engineering, and Mathematics

The Shodor Education Foundation, Inc. requests funding support in the amount of
$292,590 for a research and development effort, Deaf Educational Access For Science,
Technology, Engineering, and Mathematics (DEAF STEM). DEAF STEM will expand
the work of Project SUCCEED-HI (NSF #9906189) by adding American Sign Language
(ASL) versions to the existing text of a wide variety of Shodor materials. A project goal
is to improve access for all students to the National Science Digital Library (NSDL),
including Shodor's extensive STEM materials, which have been developed through
previous, and current NSF funding. In addition, DEAF STEM will provide a dynamic
resource for educational interpreters and other providers to increase their competence and
confidence in interpreting and supporting education in STEM areas to deaf students.
Intellectual Merit: DEAF STEM addresses the needs of both deaf students and their
teachers/educational interpreters. Deaf students are underrepresented in STEM fields in
large part because of the documented low-grade reading level (3 rd 4 th grade) of the
average deaf high school student and the minimal skill levels of most educational
interpreters. DEAF STEM will address the teacher and student needs by expanding on
the work of SUCCEED-HI to provide bilingual versions of two of Shodor's award
winning activities: Project Interactivate and the Computational Science Education
Reference Desk (CSERD) which has been selected as one of the inaugural pathway
projects of NSDL. Purely text-based approaches to STEM materials are insufficient to
ensure active access to STEM information by deaf students. Through focused research,
DEAF STEM scientists will work with deaf educators and their students to perfect the
modification and presentation of NSDL materials, while assessing a variety of
technologies, including video and the use of avatars. This focused research includes the
development of best practices for providing bilingual materials to our audience.
Additional online tools for searching our growing collection of signed lessons will
support educational interpreters. These tools will enable providers to locate correct
examples of STEM concepts communicated through ASL. The DEAF STEM team will
invite educational interpreters in the field to submit STEM passages that they need help
signing. These passages will be signed and posted on a signing STEM forum. This will
provide an open-ended opportunity for interpreters to both improve their signing skills
and to provide support for the issues they face on a daily basis.
Broader Impact: The impact of our DEAF STEM project will be felt on two fronts. By
providing deaf students with signed assistance to read STEM text, the students' ability
and confidence in reading STEM materials will be improved. The bilingual presentation
of the STEM materials in both English text and ASL video clips will provide an
opportunity for language arts and STEM teachers to work together to improve their deaf
students' reading and English skills.
By creating a web based DEAF STEM Forum, the entire deaf community will be
encouraged to explore the signing of STEM concepts. By appealing to the deaf
community's interest in promoting their language, DEAF STEM will widen the exposure
of the deaf community to relevant STEM issues. As a deliverable under the
NSDL/Pathway memorandum of understanding, Shodor will be sharing these best
practices with other projects in NSDL to maximize impact and breadth of dissemination.